Data Models for Paraconsistent Information

Paraconsistent information is information that may be incomplete and/or inconsistent. The goals of this project are to develop data models for representing and manipulating two kinds of paraconsistent information, namely temporal and quantitative. The first is for paraconsistent information that evolves with time, and the second for information involving belief and doubt factors. As part of the project, a declarative programming language based on paraconsistent data objects is developed and implemented. Also, the new data models are applied to existing and newly identified application domains. This project will construct a formal framework and tools for handling information that may have contradictions in it, thereby laying the basis for information systems in diverse areas, such as medical, scientific, business and military applications.